The Development of a Communication Networks Laboratory at Queens College

This project develops a computer communication networks laboratory. Experiments conducted in the laboratory will examine the Physical and Data Link Control layers of the OSI Reference Model. Design and implementation of the Token Ring and Ethernet Local Area Networks will be studied. The project will result in an undergraduate laboratory and an associated laboratory manual for a course in computer communication networks.